Industry-University Cooperative Program/Time-Resolved Spectroscopy at Electrode-Solution Interfaces

This research program uses the combination of a sensitive, pulsed IR laser spectrometer developed at IBM and a thin-layer electrochemical cell under fast potentiostatic control to be constructed at Portland State University. With this combination of instrumentation, it will be possible to measure vibronic spectra of molecules adsorbed on electrode surfaces by using a grazing angle reflectance technique. Changes in spectra following a step-change in electrode potential will allow a detailed examination of kinetics of oxidation or reduction of adsorbates as well as identification of intermediates. Time resolution of the measurements is expected to be less than one microsecond (which is about one million times faster than present-day instrumentation).